Creating Better Frameworks for Implementation Evaluations in MSPs: A Research and Evaluation Design Study

EDC, SRI International, and Policy Studies Associates propose a research and technical assistance design study to create conceptual and practical tools that will help improve implementation evaluation in selected MSPs. The design focuses identifying empirical descriptors of two critical elements in large-scale change (1) teachers' instructional practice, and (2) effectiveness of coaching/teacher leader strategies aimed at changing teacher practice and/or principals' instructional leadership strategies aimed at deepening instructional improvement.